FAW: The Evolution of Lek Mating Systems From Resource Defense Territoriality

A conceptually new aspect of insect population biology studies is the bridging of theory on the evolution of mating systems and theory of population dynamics..which so far have been developed independently. Factors that ultimately affect the growth and dynamics of populations simultaneously determine behaviors involved in the mate search and resource defense. Ecologists are increasingly taking a more mechanistic approach to explaining patterns in populations and communities. That is, they try to explain the "higher level" patterns in populations and communities, such as population dynamics or species diversity, by examining "lower level" phenomena, such as behavior, physiology and morphology of individuals, which determine the individual's ability to survive and reproduce. The research program proposed here fits into this new trend in examining how determinants of mating behavior and an individual's use of habitat and food resources relate to population structure and dynamics and eventually to interspecific interactions. The specific system of study comprises several species of Lordotus bee flies. Species in this genus have different morphologies related to mating behavior and presumably have different mating behaviors. Preliminary studies of two congeners at one site reveal that, indeed, they have different mating systems and populations structures although they occur syntopically and use the same resources. The proposed program will focus primarily on detailed population studies of these two species and will test hypotheses proposed by Bradbury and colleagues on the evolution of lek mating systems from resource.defense territoriality. This research plan will include detailed characterization of occupied and randomly.chosen unoccupied sites, long.term monitoring of population densities, and experimental manipulation of sites and population densities. In the last two (of five) seasons, work will continue on the demography and mating system of L. miscellus and pilot studies will be initiated on a parapatric species L. gibbus. Together, detailed studies on these closely related and ecologically similar species constitute a powerful comparative approach to testing hypotheses on the relations among resource distributions, mating systems, and population structures.